CRHCT: Reducing Health Care Costs Using 3-D Time-Resolved Contrast-Enhanced MR Angiography

9708319 Grist Cardiovascular disease costs an estimated $151.3 billion in the U.S. annually, and atherosclerosis is the leading cause of these expenditures. The treatments for atherosclerotic vascular disease require an accurate diagnosis of the degree and extent of arterial vascular disease. Diagnosis of atherosclerotic vascular disease currently relies on digital subtraction angiography (DSA), in which an intraarterial catheter is placed at the vessel of interest, and iodinated contrast is injected during the acquisition of images depicting the arterial lumen. Magnetic resonance angiography (MRA) has recently been widely advocated as a noninvasive method for imaging arterial disease. The method can be performed at a much lower cost than DSA, since it does not require arterial catheterization and is nearly risk free. Cost savings using the MRA techniques have been estimated at from $800 (aorta studies) to $3,430 (carotid studies) per examination. For the carotid arteries alone, this could account for $1.5 billion in medical savings. However, the expected savings would exceed this value because the MRA methods can be used in several different anatomic regions, including the renal, carotid, aortic, peripheral, and pulmonary arteries. The investigators have developed a method called 3D MR-DSA that combines a number of the positive attributes of MRA and digital subtraction angiography. The method has been shown to be very powerful, but the operational aspects need to be improved by research. Results from this project are expected to : 1) Improve operational aspects of 3D MR-DSA data acquisition and processing to provide an examination procedure as close as possible to X-ray DSA, 2) Improve image quality for 3D MR-DSA, 3) Identify, methods to reduce the dose of contrast agent required for 3D MR DSA, 4) Develop a strategy for disseminating 3D MR-DSA to 5 study sites, and 5) Determine the costs of 3D MR-DSA relative to conventional angiography. The ultima te goal of the investigation is to develop a robust, low cost MRA technique that provides accurate diagnostic information and has operational characteristics similar to conventional angiography. This requires a collaborative research effort between medical physicists, engineers, and radiologists to define the performance requirements and identify technical solutions to the existing problems. The educational component of the project is directed towards developing a seminar series course that teaches engineers and medical physicists the basics of cost analysis and technology assessment. The initial implementation of the course will be performed at the University of Wisconsin and is to be presented at the 1999 International Society for Magnetic Resonance in Medicine (ISMRM) meeting. ***